CISE Research Resources: Acquisition of a cluster for experimental parallel computing research in scientific computing and computational biology

0130861
Srinivas Aluru
Iowa Stae University

CISE Research Resources: Acquisition of a Cluster for Experimental Parallel Computing Research in Scientific Computing and Computational Biology

This project provides funding to Department of Electrical and Computer Engineering at Iowa State University for acquisition of a cluster of 64 Pentium workstations connected by a high-speed network. The cluster will be used as a distributed memory parallel computer and will be dedicated to support research in parallel computing, bioinformatics and computational biology, and scientific computing. More specifically, the equipment will be used for research in: parallel algorithms and software for gene identification, parallel algorithms and software for electromagnetic scattering analysis, scalable parallelization of tree-based data structures, and integrated software visualization environments for program correctness, validation and optimization. Experimental studies will be conducted to evaluate the performance of the parallel algorithms developed and the knowledge gained from such studies will be used to derive efficient, scalable, parallel implementations. Acquisition of the instrumentation will enable researchers to develop, demonstrate and disseminate comprehensive software systems that are capable of solving large-scale scientific applications of current relevance.